Moduli of Spin Curves, Geometric Vertex Algebras and Quantum Cohomology

Abstract for DMS - 0104397.

The investigator will study two groups of problems related to
physical models of topological string theory and two-dimensional
gravity and their interaction with geometry and other branches of
mathematics. Based on physical ideas and methods, E.Witten
conjectured that certain topological invariants of the moduli spaces
of Riemann surfaces with higher spin structures assemble in a
generating function that can be determined by an infinite system of
differential equations (the so-called Gelfand-Dickey hierarchy).
The goal of the first part of the proposal is to study geometric and
algebraic structures related to this conjecture by using techniques
from the theory of Gromov-Witten invariants and quantum
cohomology. Besides exposing deep connections between seemingly
unrelated areas of geometry and analysis, a goal of this part of the
project is to develop tools for analyzing more general cohomological
field theories of spin type and the corresponding spin analogs of
quantum cohomology and Gromov-Witten invariants. The second part of
the proposal is related to applications and generalizations of the
so-called chiral de Rham complex, a canonical sheaf of vertex
algebras introduced in joint work with Malikov and Schechtman. The
main goal here is to find a rigorous geometric foundation for the
physical models of two-dimensional superconformal field theory on
smooth varieties and orbifolds.

String theory is a proposed physical theory which attempts to unify
all kinds of forces and, in particular, combines Einstein's theory
of gravity with the quantum theory. Because this theory cannot yet
be verified on experiments, physicists working in string theory are
testing it on sophisticated mathematical models. Often the same
physical quantity can be computed by more than one method which
gives answers expressed in terms of very different mathematical
structures. This suggests the existence of deep ties between various
seemingly remote parts of mathematics and leads to formulation of
non-trivial conjectures connecting different mathematical objects,
usually geometric and analytical in nature. The goal of the current
project is a mathematical study of some of these conjectures and
interactions. Besides producing new mathematical results, it should
give mathematical verification of some physical models and provide
more direct links between mathematical and physical methods of
analysis of these models.